CAREER: Defining the Chemical Basis of RNA Function by Nucleotide Analog Interference Mapping

Professor Strobel's research focuses on establishing a new methodology to determine structure-activity relationships in structurally and catalytically important RNA molecules. Target molecules include a series of nucleotide analogues with oxidatively labile 5'-O-(1-thio)triphosphate substituents. Individual analogues will be incorporated into RNA by in vitro transcription to create a library of mutant RNA's, where individual nucleotides have been randomly replaced by an analogue. Individual RNA mutants that exhibit activity in a particular biological system are distinguished from those that do not. Subsequent oxidative cleavage at the thiophosphate group under mild conditions with iodine, and comparative analysis of the active and nonactive analogues on sequencing gels offers a straightforward means to identify the active chemical group. This methodology, called Nucleotide Analogue Interference Mapping (NAIM), will be used to identify the chemical groups in RNA relating to: (1) the interaction of 5S rRNA with ribosomal protein L25; (2) the role of U6 snRNA in pre-mRNA splicing; (3) the autocatalytic VS ribozyme from Neurospora; and (4) the interaction of alpha operon mRNA with S4 protein. Educational activities include developing a bioorganic course emphasizing synthetic organic design and macromolecular function, and involving both local undergraduates and minority students in the research program. With this CAREER award, the Organic Dynamics Program supports the research and educational activities of Professor Scott Strobel of the Department of Molecular Biophysics and Biochemistry at Yale University. Professor Strobel's research is focused on developing a methodology, called Nucleotide Analogue Interference Mapping, that will significantly accelerate the process of identifying structure-activity relationships in structurally and catalytically important RNA molecules. Professor Strobel's educational activities include developing a multidepartmental course which will explore the use of organic chemical synthesis to investigate and understand biological systems, and promoting an interest in chemical research by involving both local and minority undergraduates in the research program.